An Analytical Model for FRP Retrofit Sysytems Applied to Unreinforced Masonry Buildings

Abstract
The general objective is to develop an analytical model for unreinforced
masonry (URM) building models subjected to quasi-static lateral forces in combination with gravity
loads. A case study of the need for such research is presented by the 1994 Northridge earthquake during which,
a large number of unretrofitted URM buildings have been damaged. Retrofitted URM buildings however,
performed much better, and the damage to these structures was less catastrophic. The research
will enhance the existing body of knowledge by developing simplified system-based analytical
tools for investigating the effectiveness of composite materials in repairing and/or retrofitting masonry
buildings. Based on results from previous and proposed experimental results, this research will permit a
wide range of both broad and specific investigations on the behavior of unreinforced and FRP-reinforced
masonry buildings as systems, and will compliment and expand the current research data from
experimental and analytical studies on building components.
To accomplish the project objectives, the following
tasks will be crried out: develop an analytical model using commercially available computer software
packages to analyze URM building systems; conduct experimental investigations of selected building
systems to validate URM model accuracy; conduct small component experimental investigations on key
FRP-URM material properties to generate missing data needed for the analytical model; expand the
analytical model to incorporate the new FRP-URM material properties derived from small component
tests; conduct experimental investigations of selected building systems to validate FRP-URM model
accuracy; and calibrate the model based on the results of the validation tests.
The broader impact resulting from the proposed activity includes the involvement of freshmen
engineering students to use this project to assist them in the development of their critical thinking and
problem solving skills. Furthermore, Civil Engineering seniors will participate in the project and will
have an opportunity to emphasize engineering systems, the impact of research on design and technology,
and the importance of multi-disciplinary design. In addition, the participation of North Carolina A & T
State University, a non-Ph.D. granting HBCU with a 90%+ student population that is African American,
will provide a unique opportunity for involvement of under-represented students in this project.